PostDoctoral Research Fellowship

This Fellowship will support a research agenda that is a novel approach to the study of nations and
nationalism. This project investigates the "national movements" of stateless nations. It places intranational
movement variation at the center of its analysis. Placing variance at the center of the research
agenda is more likely to provide us with the most significant advances in our understanding of
independentist nationalism, and of its counterparts, autonomist nationalism and federalist nationalism.
Specifically, this project studies the conditions under which new nationalist political parties get
successfully established within the institutionalized sphere of parliamentary politics and electoral
competition, with a focus on the role played by networks of sociological nationalism. In selecting cases,
this project will seek to have cases where there is variation in the independent variable: low vs. high
levels of the presence of sociological nationalism in civil society, and a corresponding variation in the
dependent variable: success or failure in the founding of autonomist, independent, or federalist nationalist
political parties. The universe of cases covered by this project includes the nationalist parties of Quebec,
Catalonia, Puerto Rico, Scotland, the Basque Country, Corsica, etc. The project will develop a data set
mapping the extent of the presence of sociological nationalism in the civil society in the selected cases.
The Fellowship will also support original fieldwork in the selected cases. Ultimately, the broader research
agenda this Fellowship supports will help to illuminate the relevance of national movements for state
stability and state maintenance.